Acquisition of a Double-Focusing Magnetic Sector Mass Spectrometer for Atmospheric Trace Gas Measurements

This Major Research Instrumentation (MRI) project provides for the purchase a double-focusing magnetic sector mass spectrometer to be utilized in support of research in the Department of Earth System Science and the Department of Chemistry at the University of California, Irvine. The instrument will be utilized in research addressing the atmospheric chemistry and biogeochemistry of organohalogens contributing to ozone depletion, the accumulation and origin of greenhouse gases in the atmosphere, the use of hydrocarbons as tracers of major tropospheric sources such as biomass burning, industrial emissions, and biogenic emissions, and the role of hydrocarbons in tropospheric chemistry.